Baryon Structures and Hadron Interactions

0073003
Comfort
The fundamental particles and interactions in nature are currently
described by the Standard Model, with the sector of strong
interactions described by QCD. The open and difficult challenge
is to understand in detail how these theories describe the
properties of matter. The empirical knowledge of the subnucleonic
(quark and gluon) degrees of freedom in the structure of baryons and
mesons and their interactions is essential for understanding the
nature and dynamics of the fundamental nuclear interactions.
A program in medium-energy nuclear physics is being planned
that will bring new and important information for these issues.
The properties of baryons can be explored by bringing pion
and kaon beams onto proton targets. Critical tests of the
Standard Model can also be made by studying specific decays
of kaons. Because the experimental work will be carried out
at large accelerator facilities in the U.S. and Europe, the
planning activities will include travel to these facilities or
other institutions for detailed discussions with collaborators,
as well as computer simulations and calculations for the
experiments that are anticipated.